Characterization of a Novel Myoplasmic Protein in Ascidian Embryos

9304958 Swalla The proposed experiments investigate the role of a novel 58 kD protein (p58) in ascidian larval tail muscle differentiation. Ascidian embryos are used as a model system to study cell autonomous differentiation because embryonic cells which inherit the myoplasm, a localized region of the egg, will become larval muscle cells in isolation. The experiments to be performed will test the hypothesis that p58 is involved in larval tail muscle determination. P58 is synthesized early in oogenesis, then is concentrated in the egg myoplasm during vitellogenesis, and later is abundant in larval tail muscle cells. I have sequenced a clone isolated by screening an expression library with NN18, an antibody which recognizes p58 on western blots. This clone encodes a novel protein related to transducin, the Drosophila Enhancer of split E(spl) message m9/10, and human nuclear proteins. E(spl) is a member of the Notch group of genes, which have been shown by mutational analysis to function in cell fate decisions through interactions with Notch, an EGF-like transmembrane protein. I propose to use the ascidian embryo as a model system to study the mode of action of these unique genes. The PI will first examine the temporal and spatial expression of the p58 gene during embryogenesis by northern and in situ hybridization. Possible interaction(s) of p58 with egg cytoskeletal components will be investigated by double immunofluorescent labelling followed by confocal microscopy, and also by ultrastructural immunolocalization. The role of p58 during embryogenesis will be examined by loss-of-function and gain-of-function experiments. P58 function in the embryo will be inhibited by microinjecting antibodies into the egg and documenting the effect on development and larval tail muscle formation. The effect of expressing the gene in cells that do not normally express it will be analyzed by microinjection of cDNA clones or purified protein into the embryo. In most ascidian species, the egg develops into a tadpole larva with a distinct head and a tail containing bands of striated muscle cells, but in anural (tailless) embryos, there are no muscle cells in the "larval" stage. Anural (tailless) ascidians lack both localization of p58 in their egg myoplasm and larval tail muscle cells, so that expression of the p58 gene will be examined in anural embryos to explore how the egg cytoskeletal may be organized differently in these species. These experiments will test the possibility that p58 may have a role in autonomous muscle cell determination in ascidians. ***